I-Corps: Room Temperature Titanium Extraction from Low-Cost Pigments

The broader impact/commercial potential of this I-Corps project is the development of a green manufacturing technology for titanium production. Special metals, such as titanium and its alloys, have unique corrosion resistance, high specific strength, and excellent bio-compatibility. These metals may be used in the fabrication of high-performance parts for medical implants and other applications such as deep sea mining and robotics. In addition, the proposed room temperature process for titanium production may enable the development of future alloys such as high entropy alloys, which are not suitable for the current high temperature manufacturing process. Also, the proposed manufacturing process may be applied to extract rare earth metals from their oxides, satisfying critical needs in manufacturing electric motors for the US auto industry.

This I-Corps project is based on the development of an electrochemical approach for titanium (Ti) parts manufacturing utilizing low-cost pigments (TiO2) refined into value-added products (e.g., Ti powders/wires) at room temperature. Though electrochemical approaches have been exploited by others, the proposed technology is based on a unique liquid metal alloy as the anode. The liquid metal alloy has a “catalytic” capability, capable of accelerating titanium extractions from solid TiO2 without the need for elevated temperatures. The resulting value-added products may be used as raw materials in additive manufacturing to deliver Ti parts. This proposed room temperature process potentially may save more than 50% of the energy costs versus the traditional Ti refining process and may be easier to directly couple with additive manufacturing. In addition, this technology may decrease the price of Ti powder from >$50 per pound to $4 per pound.